Second International Conference on Composites in Infrastructure

9617295 Saatamanesh This award provides support for the second "International Conference on Composites in Infrastructure". The Conference will be attended by approximately 400 people from various countries and will include presentations and discussions of current and future research as well as discussions for integrating advanced composites into the construction industry. Every effort will be made to create an atmosphere for effective communications among participants from the composite industry, construction industry, researchers, practicing engineers, and regulatory agencies to pave the way for the transfer of technology from the composite and aerospace industries into the construction industry. ***